Fisher SCHolars for Rural Schools (FISCHRS)

The Fisher SCHolars for Rural Schools (FISCHRS) Project involves Saint John Fisher College (SJFC), community colleges, and rural K12 school districts in western New York State. This project seeks to increase the number of middle and high school mathematics teachers in western New York State. FISCHRS provides Robert Noyce Scholarships to SJFC students who have three years to complete both their undergraduate mathematics degree and mathematics certification requirements. Students who receive this support are obligated to spend six years teaching in a high-needs school district. Students, transferring to SJFC from partner community colleges and intending to teach in one of the partner K12 school districts, are given priority in receiving awards. A total of ten students are to be trained over five years.